Cellular Recognition and Binding by RGD-Bearing Surfaces

This project will be supported by a joint award from the Chemistry Office of Special Projects and the Cellular Biosciences Cell Biology Program as part of the Chemistry of Life Processes Initiative. It is aimed at developing a quantitative understanding of the cell adhesion properties of the Arg-Gly-Asp (RGD) moiety. It is based on the premise that a detailed investigation of how RGD density and distribution affect cell adhesion properties of well-defined surfaces will reveal important correlations between ligand-receptor density and cell binding. At present, such correlations have been impossible to establish due to the structural complexity of natural adhesive- promoting proteins, and cell surfaces. The ultimate objective of this research is to provide unique insights into the molecular basis of cell recognition and adhesion. Immediate objectives of this research include: (1) the synthesis of polymerized phospholipid Langmuir-Blodgett films containing a controllable density and distribution of RGD-bearing peptides, and (2) a quantitative analysis of how peptide density, distribution, and spacing from the surface influence cellular recognition and binding.